Planning Meeting for a National Initiative on Complex Systems in K-16 Education

This project will fund the planning conference for a larger meeting to create a long term public national agenda for incorporating, new ideas of complexity, dynamical systems modeling of nonlinear phenomena and related ideas such as emergence and fractal descriptions into the mainstream educational experience of American citizens. An invitational planning meeting will be held near Boston, the final and second, a public conference in Washington, DC in late autumn of 1999. This proposal is to fund the planning meeting and provide the conceptual foundations and practical information to define the second. Our planning necessarily involves distinct communities of scholars, scientists and educators who bring diverse experiences, insights and perspectives to our large task. The outcome of the first meeting will be a series of working papers and summaries of prior work and web site that will be the basis for the major public conference and the associated national agenda.